Computer Alegebra System Workshops, New Series

College and pre-college faculty are learning how to use computer algebra systems in the teaching of calculus. Strong emphasis is placed on using these systems in such a way that the calculus curriculum is improved by introducing numerical and graphical experimentation and by focusing on problem solving and understanding of concepts.